Survey of Mathematical Opportunity

The survey of mathematics and science opportunity (SMSO) is to: 1) develop a better methodology for measuring science and mathematics opportunity to learn in elementary and secondary schools; 2) develop a prototypical curriculum framework for the analysis of mathematics and science materials; 3) develop a measure of teacher knowledge; and 4) conduct an exploratory study of ways to measure instructional practices. The work will be done in three phases: The first phase is the development of a mathematics and science content framework. This work will lead to the development of prototyical framework that will be used in the curriculum analysis for TIMSS. A second phase is the development of coding manuals which describe the methodological procedures of how the framework would be applied to the curricular materials. The third phase is to conduct research and development that would produce survey instruments for TIMSS focusing on opportunity to learn (OTL), teacher knowledge, and other schooling variables, especially classroom processes (instructional practices).//